On the Role of Load and Pore Pressure Diffusion in the Triggering of Seismicity at Monticello Reservoir

The proposed studies are aimed at studying the relative roles of loading with accompanying elastic pore pressure increase and pore pressure diffusion in triggering seismicity at Monticello Reservoir, S.C. following its impoundment. Monticello is unique in that extensive geological, geophysical, and seismological studies were conducted prior to, during, and after filling, making this one of the best studied cases of reservoir induced seismicity in the world. Determination of the relative roles of loading and pore pressure diffusion requires analyses of accurate spatial and temporal patterns of well located earthquakes together with the induced stresses and pore pressure changes which occurred during filling. As the geology at the site is extremely heterogeneous, development of a three dimensional velocity model is necessary to obtain accurate hypocentral locations. We propose to develop such a model by inversion of high quality local earthquake phase data within constraints imposed by detailed geological and geophysical data. Relocation of initial seismicity using the improved velocity model will provide an accurate spatial and temporal history of the activity. From a comparison of these patterns with that of the load induced stresses it will be possible to differentiate the relative roles of loading and pore pressure diffusion in triggering the seismicity at Monticello Reservoir. The results of these studies will be directly applicable to the control of RIS associated with reservoirs worldwide.